VPW: Risk Sharing, Market Imperfections and Endogenous Policy Formation

This research explores the importance of asset markets for rent- seeking behavior and endogenously determined policy in democracies. Part I shows that access to markets influences individuals' trade- policy preferences and government policy choices. Part 2 determines the consequences of this interdependence for human and physical capital accumulation, growth and fluctuations. Part 3 examines international lending to economies in transition from socialist to market systems where rent appropriation by foreign entrepreneurs arises. This project will reveal the structure of asset markets necessary to moderate protectionist interests, minimize rent-seeking behavior, and further progression towards market systems in transition economies. The analysis employs a formal theoretical framework and implications will be related to empirical observations. The interactive component incorporates teaching, research, and social elements. A course in international economics is being offered to graduate students in the first semester, while a freshman course will be offered on global economic issues in the second semester. Participation in the organization of the International Workshop is ongoing throughout the visit as is attendance at faculty meetings and departmental social functions. In addition, initiation of more casual economics discussion groups at weekly lunches is being promoted.